REU Site at the University of Alabama Department of Chemistry

The University of Alabama is being supported to establish a Research Experiences for Undergraduates (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry for outstanding undergraduate students under supervision of experienced research chemists. The program will support 9 students for the summer of 1987, of which almost half will come from other institutions. The Research activities will include: o X-ray Crystallography and Organometallic Synthesis o Separation and Classification of Pheromones o EPR Studies of Photo-Excited Cartenoids = Nature's Photoprotect system o FTIR Measurements for Langmuir - Blodgett Films